Mathematics and Science Enhancement

Clark County School District(CCSD) will provide staff development for elementary teachers (72 in mathematics, 72 in science) and administrators to become leaders and agents of change. By means of this systematic plan to empower educators an opportunity will be created for every K-6 grade student to become an active learner and scientifically and mathematically literate. The participants are well prepared teachers who are knowledgeable about content and conversant with current instructional strategies on how children learn mathematics and science. The staff for the project include nationally recognized experts from the Lawrence Hall of Science(U.C Berkeley),The Math Learning Center(Portland State University), The Center for Excellence in Mathematics Education(Western Washington University) and TERC. The materials to be adopted stress the use of manipulatives and hands on learning and include Math and the Mind's Eye, FOSS and SAVI/SELPH. The leadership component will be patterned on the California Mathematics Leadership Program(CMLP) an NSF funded project under the leadership of Ruth Parker who will serve as a consultant on this project. In the third and fourth years of the program the participants will assume their responsibilities for leadership by teaching in Staff Development centers throughout the school district and working with peer teachers in schools. A history of the project will be maintained by the co- directors. This will serve to document the process of change and the consequences for teachers, administrators and students in a large and diverse school district which includes rural, suburban and inner city schools. This will serve as a model for other districts planning similar in depth staff development to empower teachers as agents of change. Cost sharing is equal to 94% of NSF funding requested.//